A Computer Laboratory For Calculus

A computer laboratory for enhancing the teaching and learning of calculus will be established. The investigators have developed open-ended laboratory projects to be worked by teams of students. The proposed laboratory will allow further implementation of Georgia Tech's Calculus Reform program. The laboratory will be used by students working on team projects and will be used for in-class instruction on the use of the computer algebra system Mathematica.